Advanced Manufacturing Concepts for Shaping Superplastic Sheet Materials

The research work will examine the mechanics of superplastic deformation with the intent of providing broadly applicable flow rules for use in the modeling of the superplastic forming process. Such a model can be used to devise processing methods which increase the productivity of the superplastic forming process and increase its range of application. The research study is a comprehensive one, including aspects of strain-rate path effects, anisotropy, grain coarsening, cavitation and interfacial friction modeling. The project involves verification of the research models in laboratory tests and in tests on production equipment in industry. Superplastic forming is used to shape high performance alloys in aerospace application and will find increased use in its applications to the forming of titanium aluminides and other, "next generation" aerospace materials. Better understanding of the behavior of materials during superplastic forming will allow the fabrication of high performance parts at lower cost and with higher reliability.